CSR---SMA: Validating Architectural Simulators Using Non-Linear Dynamics Techniques

This project strives to improve the state-of-the-art in architectural
simulators in two ways: (i) by enabling users to determine if an architectural
simulator correctly models the key aspects of a real hardware system; and (ii)
by helping simulator implementors to identify weaknesses in their simulators.
This problem is critical because much architectural research today uses
simulations; if the simulators are not accurate then the results from the
simulator may be misleading. Prior work validates simulators by using
aggregate metrics (e.g., do the simulator and the real hardware execute a
program in a similar number of total cycles?). This validation does not
consider whether or not the simulator and the hardware exhibit similar
time-varying behavior.

A key innovation of this project is that it embraces techniques from the field
of non-linear dynamics. These techniques are well suited for computer systems
for two reasons. First, computer systems are non-linear at all levels (e.g.,
the cost of a cache miss is not fixed and instead depends on many factors) and
thus linear techniques will be of only limited use. Second, many aspects of
computer systems are unknown (e.g., the hardware manufacturer may not reveal
the full specifications of the hardware) or unmeasurable (e.g., it may not be
possible to measure how often a particular event occurs deep down in the
hardware). Non-linear dynamics techniques are specifically designed to deal
with such missing information.